CAREER: Linking the Atomic and Meso-Scales to Mechanical Properties: A Case Study of Ni3Al

9703427 Chrzan This is a CAREER award to a new faculty member. The grant is comprised of a research component integrated with an educational component. The goals of the award are to (1) develop a detailed atomic and meso-scale understanding of the mechanical properties of Ni3Al (and related materials); (2) develop microstructure-based constitutive relationships for these materials; (3) make computational materials science more accessible to the typical materials scientist through development and teaching of a computational materials science "lab" course; and, (4) make the course and codes widely available via the internet. %%% This is a CAREER award to a new faculty member. The grant is comprised of a research component integrated with an educational component. The goals of the award are tm (1) develop a detailed atomic and meso-scale understanding of the mechanical properties of Ni3Al (and related materials); (2) develop microstructure-based constitutive relationships for these materials; (3) make computational materials science more accessible to the typical materials scientist through development and teaching of a computational materials science "lab" course; and, (4) make the course and codes widely available via the internet. ***